Response of a Temperate Grassland Ecosystem to Climate Change: Importance of Biotic Interactions and Feedbacks

Atmospheric carbon dioxide levels have been increasing since the industrial revolution. There is agreement among general circulation models of the atmosphere that elevated CO.2 will cause increased temperatures. Predicted effects for precipitation are much less certain, but changes in the total and seasonal distribution of precipitation seem likely. The effects of temperature and precipitation on grassland ecosystems have been studied extensively, and there is considerable information about the short.term response of individual plants to elevated CO.2. However, ecosystem level responses to climate change are hard to predict because of biotic interactions and feedbacks: (1) effects of elevated CO.2 may interact with effects of altered temperature and moisture, (2) plants may undergo physiological changes in response to long.term exposure to elevated CO.2, (3) changes in the quantity and quality of primary production may affect decomposition and mineralization, which in turn affect nutrient limitation. This research will determine the dynamics of the response of shortgrass steppe over several growing seasons to elevated CO.2 and altered climate (different combinations of temperature and water). Experiments will be carried out in the field and at the Duke University Phytotron, using large intact soil cores to preserve natural relationships among plants, microbes, fauna and soil. The system level effects of climate change will be examined in relation to primary production, decomposition, soil organic matter, and the soil detrital food web. Research of this nature is essential to the resolution and management of pressing modern problems of CO.2 increase and global warming. The products of this project should be of significant interest to basic scientists as well as resource managers and political decision makers. The research team is excellent. Institutional facilities are first.rate and the use of the Duke phytotron facility is completely appropriate.